A Laboratory for Joint Research in Artificial Intelligence and Parallel Computing

This Institutional Infrastructure award is for the support of research projects in artificial intelligence and parallel computing. The infrastructure consists of a parallel computer and the staff to maintain the computer. The projects supported by this award include learning algorithms, real time decision making, data- parallel compilers, and parallel programming support environments. Parallel computers are research tools in two senses. The first is that they provide a substantial increase in computational power. The second is that they act as an experimental vehicle for new systems software that needs to be developed in order to use the computers effectively. This award addresses both questions. The artificial intelligence research needs the computing power while the compiler and support environment work needs the experimental vehicle.